Undergraduate Research at the Fluid Dynamics Research Center

A Research Experiences for Undergraduates (REU) site is established at the Fluid Dynamics Research Center (FDRC) of the Illinois Institute of Technology (IIT) in Chicago. The program will be aimed at qualified undergraduate students enrolled at IIT as well as at other universities and colleges in the state of Illinois. It will be designed to provide the students selected with hands- on experience in fluid mechanics research in an environment where they will be exposed to new and exciting research problems and to techniques that are at the 'cutting edge' of this field. The FDRC provides a strong disciplinary focus in Fluid Mechanics and Aerodynamics. Research is supervised by six experienced faculty members. An REU participant would be a member of a research team, interacting with the faculty as well as with other students. They will be given specific assignments tailored to obtain the right mix of knowledge, the acquisition of new skills, and a sense of accomplishment and belonging. The program includes site visits to other R&D institutions and a round-table discussion with engineers from these institutions who are involved in R&D. It will provide a rich learning experience and a good perspective on research opportunities in engineering.